Multi-Scale Analysis of Colorado Front Range Extreme Wind Events

Extreme wind events, with gusts exceeding 100 mph, can occur in the Colorado Front Range (CFR) resulting in increased wildfire danger and a substantial risk to property and infrastructure. The goal of this study is to improve understanding on how the geographic variability in the CFR interacts with different scales of atmospheric flow patterns. This will increase identification of resulting impacts from extreme wind events within a rapidly growing urban corridor. Maps developed from the proposed work will be made available to operational forecasters and stakeholder communities. Observational datasets compiled in this project will be packaged into modules for use in a variety of classrooms. Improved prediction of extreme wind events in the CFR is critical for enhancing wildfire preparedness, reducing risk to lives and infrastructure, and supporting more effective emergency response and land management decisions.

The Colorado Front Range is unique compared to other continental U.S. locations because extreme winds during the cool season accompany both downslope windstorms and explosive cyclogenesis events. Moist ascent over the Rocky Mountains can modify the thermodynamic character of air masses that descend over the Colorado front range. This project will first develop a long-term high-resolution climatology of CFR extreme wind events. Next, an artificial neural network data analysis technique known as self-organizing maps will be used to 1) identify spatial patterns of CFR extreme wind events and 2) identify circulation regimes conducive to CFR extreme wind events. This work aims to identify how variations in synoptic scale flow pattern influence the dynamic and thermodynamic processes that induce CFR extreme wind events. The project will examine the role of the diurnal cycle, microphysical properties and urbanization on the observed extreme wind events.